A Field Induced Membrane Ion Source for Mass Spectrometry

This award provides support for an international collaborative effort to develop and evaluate a new type of ion source for mass spectrometric analysis of biopolymers and bioconjugates. The American collaborator is a skilled mass spectroscopist active in use of mass spectrometry for sequence analysis of proteins and other polymers of biological significance. The Russian collaborators have made significant contributions in development of mass spectrometry instrumentation. The use of mass spectrometry for detailed analysis of biopolymers is becoming one of the most important techniques for modern analytical biochemistry. As such, it plays an important role in all aspects of biotechnology, from research to process development and quality control. Thus technological advances in this area, such as those likely to result from this award, have great potential for strengthening both basic and applied aspects of biological research.